Resource Distribution and Population Monitoring

The objective of this project is to determine how the fine- scale patterns of herd size, inter-individual distance, herd spacing, and herd movement in antelope are affected by the fine- scale spatial distribution and patchiness of their food supply. The project both addresses important current theoretical issues in behavioral ecology and provides highly relevant information for range management and conservation. The study will focus primarily on Thomson's gazelles and will be carried out in Kenya for a three-year period. The basic research questions involve the testing and refinement of several current animal settlement and optimal group size models. Computerized graphical techniques will be used to define the food patch pattern. The dispersion and movement of gazelles over these areas will be mapped at intervals using a highly accurate laser rangefinder and a computerized navigational system. Food intake rates will be measured and radio-tracking of selected individuals, aerial surveys, controlled manipulations of food distributions, and comparative observations on other antelope species will be conducted. The investigators will be working in close collaboration with several Kenyan biologists: Dr. Jonah Western of Wildlife Conservation International, Dr. David Andere of KREMU (Kenya Rangeland Environmental Monitoring Unit), and a graduate student from the University of Nairobi. KREMU is charged with monitoring rangeland use by both wild and domestic stock as well as agricultural land use. As Kenya's population continues to grow, important decisions will have to be made concerning these three critical resources. Most of their current data rely on aerial surveys. They are particularly interested in the ground-level techniques developed in this project for monitoring fine-grained dispersion of animals. Herd size and movement rates may prove to be a more sensitive and instantaneous index of habitat quality than overall animal densities. Dr. Western is an expert on the large mammal community of Amboseli National Park as well as the behavioral ecology of the Maasai tribesmen and their cattle. He will be conducting parallel studies of herd size and spacing on domestic stock, where herd size, herd movement rate, and inter- individual spacing can be experimentally manipulated. The combined results of both studies will have important implications for the management of domestic and wild herds.